Analytical Chemical Approaches to the Elucidation of the Structure of Biomolecules

This project, supported in the Analytical and Surface Chemistry Program, focusses on the development and characterization of new method for probing the mechanisms and energetics of large ion dissociation in electrospray ionization and matrix assisted laser desorption/ionization mass spectrometry. Professor Williams and his students at the University of California at Berkeley will experimentally and theoretically study this new method, blackbody infrared radiative dissociation, with smaller biomolecules initially. A long-term goal of this work is to understand the role of salt bridges involving acidic residues in peptides in the gas phase. The unique feature of this new method is ions ranging in size from small to large can be trapped in a Fourier-transform mass spectrometer cell and exposed to blackbody photons that activate dissociative processes under controlled conditions. This experiment permits study of the kinetics and mechanisms of these processes which also occur in other ion dissociation methods, but under uncontrolled conditions. A new method for inducing chemical reactions for ions ranging in size from small to large is being developed and characterized in conjunction with mass spectrometry experiments. Professor Williams and his students at the University of California at Berkeley will use blackbody infrared photons to initiate these reaction under controlled conditions in a mass spectrometer cell. The experimental and theoretical characterization of this new method, developed in Professor Williams' laboratories, will permit the study of the conformation of large biological molecules, such as DNA, in the gas phase. This information is important for understanding the chemistry of these biological molecules and their structures.